Partial Support of the Gordon Research Conference on Solid State Chemistry; Plymouth State College; Plymouth, New Hampshire; July 27 - 31, 1992

Financial support ($4,000) is requested for eight graudate students and postdoctoral fellows to participate in this biannual meeting on solid state chemistry. The program includes 23 young and established speakers from United States and Europe. Speakers will discuss topics such as superconducting fullerides, microporous solids in catalysis, and nonlinear optics in communication. In addition, the organizers will specifically ask for posters from the graduate students, postdoc, and young faculty, and will select 8 top contributions by graduate students and postdocs for financial support. The chief aims are to: 1) expose future scientists to the latest research in solid state chemistry, 2) provide a medium for the new comers to interact with established scientists from academic, industrial, and government laboratories, and 3) hear a first-hand report from Professor A. Ellis on the NSF Program in Solid State Chemistry for Undergraduate. This last portion is focussed on the introduction of material chemistry into undergraduate curriculum. The Gordon Research Conference is scheduled for July 27 - 31, 1992.